VPW: Topological Insights in Combinatorics

This research which makes use of topological methods and insight to obtain results in combinatorics, is being enhanced by the full-year programs in combinatorics and low-dimensional topology at Mathematical Sciences Research Institute (MSRI). Research activities are centered at MSRI, and Dr. Lynne M. Butler is on the program committee for the workshop on enumeration and partially ordered sets and is giving a series of lectures on this topic at MSRI's introductory workshop. Interactive activities engage her with postdoctoral researchers, graduate students at the University of California - Berkeley, and local high school teachers. They include teaching a UC-Berkeley graduate course in Coxeter groups, mentoring and supporting the women mathematicians (undergraduate, graduate and postdoctoral) in Berkeley's Noetherian Ring, and experimenting with outreach to high school teachers during MSRI's introductory workshop.